SSC: "The Atlanta Science Summer Camp

SSC-9450318 Georgia State University Atlanta, GA Keys, Carolyn "The Atlanta Science Summer Camp" The Atlanta Summer Science Camp is designed to involve minority middle school students in an in-depth program of science and math activities, career exploration, and reflection. Three years of programs are proposed, each with a different theme: environmental sciences; space and atmospheric sciences; and plants, genetics, and food. It is anticipated that this three-year program will serve as a prototype for the development of many more camps which will serve students throughout the city of Atlanta. Three major conceptual components guide the design of camp activities: (1) collaborative social interactions in science, engineering, and mathematics; (2) the relationship between science, engineering, and mathematics and the quality of human life; and (3) student authentic inquiry. Instructional activities will emphasize: cooperative learning; interactions with scientist in their work places; student design and implementation of investigations; field and outdoor experiences; "real world" contexts for learning; and supportive scaffolds. Students will participate in a variety of projects in which they learn to ask questions, make predictions, design studies, analyze data, and reflect on results. Instruction on technology as a tool for science and engineering will be included. Career exploration will be integrated with field trips and projects. A special feature of this camp is the provision for comprehensive teacher education in cooperative learning, authentic investigation, constructivism, technology, and authentic assessment. This project is being sponsored by the Aslant Math/Science Collaborative Leadership Team including members from the city of Atlanta, Atlanta Public Schools, Georgia State University, Georgia Institute of Technology, Clark Atlanta University, and Jimmy Carter's Atlanta Project.